Multimedia Math Project (MMP)

The Multimedia Math Project (MMP) will create a versatile multimedia video product which motivates students, directly links the basic math principles they are learning to real world applications, and gives educators insight into the teaching methods of Jaime Escalante and two other super teachers. It will consist of multiple vignettes addressing approximately 20 math concepts, and targeted at prealgebra courses. These vignettes will help teachers answer the questions of "what is this math good for?". As does Futures, the MMP will feature numerous positive examples of minorities and women whose professional success has resulted from their math skills. The target grade levels are grades 7-9, focusing on prealgebra mathematics instruction.